Behavior and Design of Composite Columns with High Strength Concrete Subjected to Axial Load

In recent years, composite columns have been used to achieve greater efficiency in many major structures in the United States. Simultaneously, the technology of high strength concrete has advanced rapidly and several important structures have been constructed using high strength concrete. The advantages of high strength concrete and composite construction can be combined to achieve even further efficiency, particularly in the columns. The combinations is composite columns with high strength concrete. In these columns, the concrete will provide extra and stability in compression and the steel will supply strength, stiffness as well as ductility. The objectives of the research are to study behavior and to develop guidelines for design of composite columns with high strength concrete. The objectives will be met by conducting experiments and analyses on a series of columns have configurations representative of those occurring in practice. A total of sixteen specimens will be tested. The specimens will have W shapes encased in the high strength concrete. Using the test results and analytical correlations of the results, current design procedures for composite columns will be modified or new procedures will be formulated.